GOALI: Engineering Internship in Solidification Processes Associated with Investment Casting

ABSTRACT CTS-9510563 Richard N. Smith This is a GOALI proposal for a three-month industrial internship for the summer of 1995 to study fundamental problems in the investment casting process in cooperation with the General Electric R&D Center, and to initiate a collaborative research effort with GE. Particular emphasis will be on studies of investment casting of superalloys, including the development of modeling tools.